Relaxation Dynamics of Amorphous Solids of Water and Other Glasses: A Hole Burning Study

The proposed project describes an experimental and theoretical study of the structure and dynamics of amorphous solids using nonphotochemical hole burning as a versatile probe of glass dynamics.